Dynamics of Neutron Stars (U.S.-Turkey Cooperative Research;Science in Developing Countries)

ABSTRACT NARRATIVE Description: This proposal supports the collaboration of Dr. David Pines, University of Illinois at Urbana-Champaign and Dr. Ali Alpar, the Scientific and Technical Research Council of Turkey (TUBITAK). Project funding will allow Dr. Alpar three six-week visits to Dr. Pines' laboratory and one two-week visit by Dr. Pines to Dr. Alpar's laboratory. This collaborative research effort is for theoretical study of the internal structure and dynamics of neutron stars. Scope: This proposal will bring together research scientists from the universities of two countries working in the area of neutron star dynamics. The further refinement and re-evaluation of theories concerning the rotational behavior of neutron stars is the primary objective of this US-Turkey scientific collaboration. It is anticipated that a review article on superfluidity in neutron stars will result from this effort. This proposal fulfils objectives of the Science in Developing Countries Program in its exchange and transfer of scientific knowledge through an international collaboration.